Relativistic Nuclear Physics

This project will carry out work related to relativistic theories of nuclear physics. The role of vacuum polarization in nuclear ground state correlations will be studied. A new approach to renormalization will be investigated. It is also proposed to study nucleon-nucleon interactions within a deformed chiral soliton model.